Laser Flash Photolysis Studies of Alkyl and Dialkyl CarbenesU.S.-Turkey Cooperative Research--Science in Developing Countries Program

ABSTRACT NARRATIVE Description: This proposal supports the collaboration of Dr. Matthew S. Platz, Ohio State University and Dr. Sol Celebi Dokuz Eylul University of Izmir, Turkey. The proposal funding is to support the travel of Dr. Celibi to Ohio State Universityand her per diem expenses there during a ten month period for her research in synthesizing various chemical substances (diazines) and to study their photochemistry using the most recent developments in spectroscopic and photochemical techniques. This research will be conducted in conjunction with an NSF supported research effort directed by Dr. Platz entitled "Kinetics, Spectroscopy and Mechanistic Studies of Carbenes, Biradicals and Radicals." Dr. Celebi's research will be an international extension of Dr. Platz's research at Ohio State. Scope: This proposal will be bring a Turkish scientist experienced in the university classroom and in Turkey's research laboratories to Ohio State University to conduct research in reactive intermediate chemistry under the guidance and direction of one of the young leading scientists in his field of study. The research experience gained and the acquired scientific knowledge are all transferable to the university classrooms and research laboratories of her university, the Dokoz Eylul University. These two goals are the real motivating ideas behind this proposal--the international exchange of scientific knowledge and the contribution to the scientific capabilities of a developing country--Turkey. By reason of these goals, it is considered that this proposal meets the objectives of the Science in Developing Countries Program.